Presidential Young Investigator Award:High Performance Parallel Processing Systems

The underlying theme of current research is development of a high- performance parallel processing system based on large numbers (hundreds or thousands) of microcomputers. Such a parallel system would consist of interconnected computing nodes that asynchronously cooperate via message passing to execute the tasks of parallel programs. Each network node, fabricated as a small number of VLSI chips, would in turn contain a processor, a local memory, and a communication controller capable of routing messages without delaying the computation processor. This approach to parallel computation, like all others, poses many vexing problems, including hardware design, operating system and programming support software, and algorithm design. Although there are interests in all areas of message-based parallel computation, their primary research areas are operating system design and performance directed algorithm design. In collaboration with the concurrent computation project at the Jet Propulsion Laboratory, they are currently developing several classes of dynamic scheduling algorithms. Among these is one group based on experience with adaptive packet routing algorithms. In addition to their work in dynamic task scheduling, the research team is developing a set of performance models for message passing machines analogous to those used with vector processors. These models have been used to predict the performance of problem partitioning strategies for solution of partial differential equations; independent implementation of the partitioning strategies has confirmed the accuracy of their technique.